Small Grant for Exploratory Research (SGER): Proprietary Manufacturing Technology

The underlying hypothesis of this research is that those firms that utilize an internal capability to design a major part of their own manufacturing technology will have competitive advantages that can be identified and ascribed to this strategy. The objective of this research is to investigate and test this hypothesis. The research plan includes field studies of the use of in-house capabilities to develop and build new manufacturing technology and the development and implementation for survey mechanisms to serve as benchmarks for the United States' performance in this area. The project is an exploratory step toward a full-scale cooperative research program that will study the concept of proprietary process technology design and manufacturing in the United States, Europe and Japan.